Showcase for NSF DUE CCLI Projects at the FIE and ACM SIGCSE Conferences

This project provides for showcases and other related events to promote the NSF CCLI program and projects at targeted computer science and engineering education meetings. The project provides opportunities for presentation and participation at the Frontiers in Education Conferences 2000 and 2001 and the ACM Special Interest Group on Computer Science Education (SIGCSE) Symposia in 2000 and 2001 by recipients of CCLI awards. The project builds on pilot activities at both meetings in previous years. This is done to encourage others to adopt and adapt exemplary computer science and engineering models and materials developed through NSF CCLI support. It also promotes awareness of the NSF and CCLI program among conference attendees. It includes mechanisms to assess the impact of the showcase efforts on the attendees and to increase the number of quality CCLI proposals as well as to increase the number of proposals from new investigators.